Excellence in Research: Fast and Parameter-Robust Algorithms for Thermo-Poroelastic Modeling in Complex Multiphysics Systems

Thermo-poroelastic models describe the coupled interactions among solid deformation, fluid flow, and heat transport in porous materials and play an essential role in many scientific and engineering applications. These models support advances in geothermal energy production, nuclear waste disposal, shale gas recovery, subsurface thermal remediation, and biomedical technologies involving soft tissues and tumors. However, their large computational cost and complex multiphysics coupling limit their use in large-scale simulations and real-time decision making. This project develops fast and reliable computational methods that make these simulations more accurate, efficient, and scalable. The resulting algorithms will strengthen the nation's scientific computing capabilities, support energy and environmental sustainability, and improve predictive modeling for engineering and biomedical applications. The project also enhances STEM education by providing interdisciplinary research opportunities for undergraduate and graduate students and by releasing open-source software that benefits the broader scientific community.

This project develops parameter-robust numerical algorithms for both quasi-static and fully dynamic thermo-poroelastic models, with an emphasis on mathematical analysis, computational efficiency, and scalability. The research investigates monolithic parameter-robust preconditioners, iterative decoupling methods, semi-decoupled algorithms, and enhanced stability techniques for linear and nonlinear multiphysics systems. The proposed methods preserve stability and convergence while overcoming elastic locking, pressure oscillations, and ill-conditioning caused by widely varying physical parameters. The algorithms are designed to support parallel implementation, heterogeneous time stepping, and large-scale high-performance computing environments for predictive simulations. The research also explores artificial intelligence-assisted computational strategies, including data-driven acceleration and reduced-order modeling, to further improve the efficiency of complex multiphysics simulations. The resulting mathematical framework and open-source software are expected to advance computational mathematics and provide enabling technologies for geoscience, biomechanics, environmental engineering, and other multiphysics applications. This project is funded by the U.S. National Science Foundation (NSF) Historically Black Colleges and Universities-Excellence in Research (HBCU-EIR) Program. HBCU-EIR supports research at public and private HBCUs to strengthen their research capacity and promote engagement with NSF.